Participant Support for Workshop on Statistical Methods for the Analysis of Network Data in in Dublin, Ireland.

This award will support travel and expenses for young U.S. participants in a three-day Workshop on Statistical Methods for the Analysis of Network Data in Practice, to be held on June 15-17, 2009 in Dublin, Ireland. Many modern data analysis problems involve large data sets from social, biological and other networks. In these settings, traditional modeling assumptions are inappropriate; the analysis of these data must take into account the structure of relationships between the entities being measured. In keeping with this perspective, the Annals of Applied Statistics (AOAS) has been planning a special section to appear in late 2009 or early 2010 with papers on the modeling of network data. This workshop will pay special attention to model design and computational issues of model fitting and inference. The workshop will take advantage of the high quality papers that have already been submitted to AOAS to bringing together statistical network modeling researchers from different communities, and encourage the submission of papers by young researchers and graduate students in a broad spectrum of disciplines. The workshop goal is to foster collaborations and intellectual exchange resulting in novel modeling approaches, diverse applications, and new research directions for network research and its application.